STEM A-PLUS Scholarships (Action, Persistence, Leadership, Understanding and Success)

The Action + Persistence + Leadership + Understanding = Success (A-PLUS) Scholarship Program is selecting forty academically talented, financially needy community college students working to transfer to baccalaureate degree programs in engineering, the sciences, or mathematics. Scholars are being supported by academic and professional development programming; a science, technology, engineering, and mathematics (STEM) service learning course; faculty mentors; and transfer advisement. Scholars are being recruited through local events, faculty outreach, student services, and electronic communications.

The college is a Hispanic-Serving Institution educating a significant number of women, minority, low-income, and first-generation college students. The objective of this project is to increase persistence, success, timely transfer, and professional skills, especially among underrepresented STEM students. Scholarships reduce the hours students must work to financially support themselves or their families, allowing them to complete their studies within three years, transfer to earn a baccalaureate degree, and enter the workforce.

Intellectual Merit: The project is founded upon best practices in engagement and persistence, specifically tailored to the local student population. The project is achieving its goals by using faculty mentors who lead student cohorts, success programing and industry visits, dedicated support from student services, and a STEM centered service learning course. The service learning course is based on a substantial literature base on the positive effects of service learning on underrepresented students. The project team is academically well-qualified and experienced to implement the project, representing all STEM disciplines plus student services. In addition, industry and community partners are actively involved in the project and have committed support.

Broader Impacts: This project is creating a replicable model scholarship program that utilizes transfer and industry partners to help STEM students succeed, especially underrepresented groups. Findings are being disseminated locally and nationally via webinars, a college hosted workshop, and the web. The project is to increase the number of underrepresented minorities and women achieving STEM degrees and entering the workforce, thus bolstering the competitiveness of the United States in a global economy.